Postdoctonal Fellowship on Federal Funding and Academic Computer Science Research

This one year, full-time postdoctoral fellowship enables a recent PhD in Technology and Society, with a masters in engineering- economic systems, to develop his capabilities in the social study of science. His research project will investigate the effects of Federal funding policy on research in computer science, employing a systematic, qualitative research study of relationships between funding agencies, researchers, and university departments. To gain formal training in grounded theory methodologies in sociological research, this investigator will work with two researchers, Elihu Gerson and Anselm Strauss, who are well known for their development and application of these techniques. The study will examine how variations in funding environments affect the social organization, content, and quality of scientific resarch. It will employ a descriptive, fieldwork approach, consisting of interviews of academic computer scientists, department chairs and funding officials, selected by a careful, non-randomized process which maximizes expected variations across the variables of subspecialty, university, and funding mix. Data analysis will use a social worlds theoretical framework, which attempts to express the funding-research relationship in terms of "negotiated arrangements" among participants of the intersecting scientific "social worlds" of funders, researchers and departments. This project addresses a central issue in science, technology and society studies: the impact of context on directions in science. The proposed training will augment this researcher's ability to undertake research in this area; the investigator, host specialists, and host institution are very well-qualified to undertake and support the effort; collaborative work is likely to continue after the award period. Results are likely to be appropriately disseminated and useful. An award in the amount of $28,000 is therefore recommended.